Ultrasonic Imaging: A New Tool for Early Detection of Breast Cancer

Nolan
0104573
The investigator seeks to improve ultrasound imaging in
order for it to be a more effective tool in breast cancer
diagnosis and treatment. He uses modern methods of partial
differential equations and microlocal analysis to provide images
of the breast that are artifact-free and of a higher resolution
than currently available. He models propagation and scattering of
ultrasonic waves using microlocal analysis and geometrical
optics. In particular, the approach uses the complete waveform of
the ultrasound instead of just its phase. Microlocal analysis
provides a clear explanation of artifacts that appear in acoustic
images. More importantly, it provides a means of avoiding and
removing such artifacts. To help in obtaining clear images, the
investigator looks for an arrangement of transducers providing
the strongest measurable scattered signal at the surface of the
breast. The optimal configuration is based on a power method that
starts with a non-zero arbitrary source and measures the
resulting scattered field (caused by a tumor for example) at the
surface. He models the scattering process with a linear
scattering operator based on the wave equation. The scattering
operator maps sources to scattered wave fields, whereas the
adjoint scattering operator maps scattered wave fields to
sources. By composing the scattering operator with its adjoint,
he uses the power method to find the eigenfunction corresponding
to the largest scattered signal. Novel in the approach is the
ability to couple the power method with geometrical optics. This
provides an analytical tool for computing the optimal sources
that can then be implemented computationally in a very efficient
way for both modeling and imaging the inversion.
This work aims to provide a new method of imaging the female
breast for use in diagnosing and treating of breast cancer. The
technique is based on ultrasound waves, howver it uses much more
information from these waves than is currently used. In
particular, the shape of the waves that bounce off of a lesion or
tumor in the breast is analyzed. The method is tailored to avoid
artifacts that can appear in current imaging techniques. In
addition, the method will be fast and feasible to implement.
Because of the reliability and clarity of the images, this new
imaging technique should significantly cut down on the number of
unnecessary biopsies that are currently carried out in the United
States each year. Because of the speed of the method, it can help
to provide a quick diagnosis. The method also takes advantage of
recently developed three dimensional imaging technology.
Ultrasound is a tried and safe method of imaging; it involves no
harmful radiation. The method is general enought that it could
concievably have spin-offs into other modes of imaging (X-Ray,
MRI, etc.). Finally, this new method of imaging should create
opportunities for new and established companies to manufacture
devices that take advantage of it.